Young Scholars Research Participation Program at the Oregon Museum of Science and Industry

The Oregon Museum of Science and Industry will initiate a six-week, residential Young Scholars project in high desert research, paleontology/geology, or aquatic ecology/fisheries for 33 students entering grades 10-12. This summer program will emphasize research participation in the study of Jurassic environments and fossil beds, river water sheds, or high desert ecology. Students will be engaged in field site research in one of the three disciplines for much of the project's duration.